MUNDO 2000

98-04041
KLINE

The Self Reliance Foundation, the fiscal agent for the Hispanic Radio Network, is producing a weekly, live, one-hour Spanish radio talk show. The show would introduce audiences to current breakthroughs in the sciences through science updates, interviews with research scientists and educators, and audience call-ins. The editorial plan is that approximately 20% of the topics for the interview/call-in part of the show will fall within five general categories: Breakthroughs in Science, Opportunities in Science, Science and the Environment, Science and Health, and Technology.

The PI would be Jeff Kline, President of the Self Reliance Foundation. The Producer and Co-Project Director would be Javier Sierra, the Washington, DC, Bureau Chief for the Self Reliance Foundation. They would work closely with an advisory committee of approximately 15 Hispanic scientists and heads of organizations serving the Hispanic communities.